Negative Refractive Index

Technical description: We will develop mathematical models and
computational tools to analyze optical resonance phenomena in
nanostructured materials. The proposed research will focus on resonant
interaction of optical fields with metallic nanoparticles and on
negative refractive index phenomena in optical materials with double
resonance (electric and magnetic field). We will study nonlinear
coupling of material and light excitations and their applications.
Traditional resonant optics which is limited to exploiting resonance
of electric fields with atomic systems revolutionized science and
technology by introducing lasers. Current development in nanomaterial
fabrication makes it possible to add an additional resonant
interaction, that of a magnetic field with the embedded nanostructure.
This brings exotic properties such as negative refractive index into
the optical domain. It is important to study the properties of such
materials using consistently derived equations that describe the
doubly resonant interaction. This is considerably more challenging
than simply including negative values for permittivity and
permeability. We will develop a description of the optical double
resonance phenomena starting from first principles and analyze its
physical consequences including negative refractive index. We will
also analyze the classical phenomena of nonlinear optics in doubly
resonant materials. Our pilot research with ultra-short pulses has
already shown that for very simple nanomaterials, optical control
using phase, including trapping of light is feasible.

Broader impact: This project will make important contributions to
basic science. It can lead to applications in materials science and
to high performance computing. One of the principle targets of the
work is negative refractive index material. These materials could be
of great practical value. Optimization of the design of such
materials will be a central result of our research and requires a
fundamental understanding of the nature of the interaction of light
and such nano-structures. One of the more important applications for
negative refractive index materials is superlenses. Such a lens
permits much improved focusing of light compared to current
capabilities. This would allow production of electronic components
using photolithography with much higher densities and finer features
leading to greatly increased computation power and lower cost. In
addition, other types of nano-optical materials can lead to novel
optical logic devices and short term memory buffers. Designer optical
materials are very close to realization; their full potential will
only be realized if the fundamental physical and mathematical models
are understood.